NSF East Asia and Pacific Summer Institute for FY 2012 in Japan

This action funds Colin Michael Haynes of the University of California, San Diego to conduct a research project, entitled "Improving damage prediction capability for composite aerospace structures," during the summer of 2012 at the University of Tokyo in Tokyo, Japan. The host scientist is Professor Nobuo Takeda.

The Intellectual Merit of the research project is to enable better damage prediction for structural health monitoring of composite aerospace structures. This objective is being accomplished through ultrasonic guided wave inspection with fiber optic strain sensors coupled with damage prediction models.

The Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.